International Workshop on Innovative Architecture for Future Generation High-Performance Processors and Systems; October 22-24, 1997; Maui, Hawaii

This is a workshop to bring together researchers and designers from academia and industry to discuss possible directions in the development of high-performance, parallel, distributed, and multimedia processors and systems. The topics center around systems on a chip and their utilization in building larger systems. The participants include designers of processors, compilers and operating systems, together with application experts. The wide representation will allow rich interaction concerning ideas and emphasis in the field.